Transport Properties of Oxide Superconductors

Extensive transport measurements are proposed on oriented, doped films of "YBCO". A unique and important feature is the measurement of, in addition to other more conventional parameters, the "electrical Bernoulli coefficient" which identifies the sign of the sc charge carriers. The goal is to develop a complete picture of electronic transport and thereby enhance their understanding of the phenomenon of oxide superconductivity.